CAREER: The Mechanics of Fracture in Superelastic Materials

CAREER: The Mechanics of Fracture in Superelastic Materials
ABSTRACT

Wendy C. Crone, Assistant Professor
Engineering Mechanics Program, Department of Engineering Physics
University of Wisconsin - Madison

Shape memory alloys (SMA) constitute a unique class of materials that have
already proven to have wide-ranging applications in the biomedical,
aerospace, microelectronics, and automotive industries. These materials
have a crystallographic structure that can change reversibly and
reproducibly, allowing the material to display dramatic stress-induced and
temperature-induced recoverable deformations. One key hurdle to their use
is the development of reliable SMA materials and structures, in which the
material's microstructure is well understood and its resistance to fatigue
and fracture can be reliably predicted. Critical topics to be investigated
in this research involve: determining the effect of process-induced
microstructure on fracture and fatigue behavior; exploring the effect of
grain refinement on the fracture behavior for grain sizes ranging between
the micron and nanometer scale; and developing experimentally-based models
that delineate the mechanisms influencing fracture and fatigue in NiTi and
Cu-based SMAs. In conjunction with this research, education initiatives
will be undertaken to develop widespread training at the undergraduate and
graduate levels in superelastic behavior and shape memory materials, via
new course material in the areas of nanomaterials, micromechanics and
fracture mechanics. Not only will the expanded course material provide
students with an introduction to topics where mechanics has been developing
influence and making critical contributions to new technologies, it will
also have international impact via Smart Materials Exemplar of the
Worldwide Universities Network, an international network of
researchers/educators.